BE/CBC: Impact of Agroecosystem Management on Coupled Biogeochemical Cycles and on Ecosystem Services Valued by Humans

0216316
Drinkwater
This is an exploratory project that will use meta analysis linked to modeling to provide a synthesis of the extensive literature published on carbon and nitrogen cycling processes in agricultural systems. The expectation is to be able to predict the impact of changes in management practices on primary productivity, yields and global biogeochemical cycles. Another product of this work will be to determine the impact of substituting N-fixation for mineral N fertilization.